Homotopy Theory and its Applications

DMS-0203205
Stephen A. Mitchell

The proposed work is centered on K(1)-local homotopy theory
and its applications to algebraic K-theory. One goal of the
project is to compute the mod 2 homology of the general linear
group of a number ring. A broader objective is a systematic
study of K(1)-local homotopy theory from the perspective of
Iwasawa theory, with a view toward applications to the algebraic
K-theory spectra of number rings.

One of the most striking features of modern mathematics is
its essential unity. Time and again one finds that seemingly
unrelated branches of the subject interact in unexpected ways.
The interaction of of algebraic topology and number theory is
a noteworthy example of this phenomenon. Number theory began
as a "discrete" subject, then turned analytic in the 19th
century and increasingly geometric in the 20th. In the last
thirty years or so, algebraic topology (the study of properties
of geometric objects, such as curves and surfaces, that remain invariant under deformation) has entered more and more into number-theoretic questions. The proposed work will explore
further the remarkable connections between these two subjects,
by analyzing the topology of certain geometric objects that
can be associated to classical number-theoretic data.